3He-Superfluid-4He Mixtures: Convection, Anomalous Thermal Conductivity, and Boundary Resistance

Abstract Technical abstract: This project will address two scientific issues: anomalous heat flow in very dilute superfluid helium mixtures, and convection in superfluid helium mixtures. The objective of the anomalous heat flow study is to understand experimental observations of a finite thermal conductivity of superfluid mixtures as the helium 3 concentration goes to zero. These observations conflict with theory that predicts that the thermal conductivity approaches infinity as the helium three concentration goes to zero. The work will use alternating current techniques in order to separate fluid and other heat flow paths, providing information on the boundary resistance. The objective of the convection study is to characterize convective flows in superfluid mixtures. The experimental techniques will yield pattern and heat flow data which pertain to a broad range of Prandtl numbers. The issues to be investigated concern Rayleigh-Benard convection patterns and spatio-temporal chaos, instabilities of pattern forming systems, and chaotic states. Non-technical abstract: Convection and heat flow will be investigated in mixtures of helium 3 in superfluid helium 4. Superfluid helium 4 is interesting from a technical viewpoint, because its effectively infinite heat conductivity makes it an outstanding fluid for extracting heat from cooled electronic devices. It is aimed to potentially reduce limits to heat flow in this system caused by the naturally present helium 3. It is also planned to characterize nonlinear dynamics and chaos in convecting helium. Convection occurs in the environment (atmosphere, ocean, technical processes), and it is an outstanding system for studying the broader topic on nonlinear dynamics and pattern formation. Superfluid mixtures have similar properties to liquid metals and semiconductors, and a better understanding of the convection in helium is potentially relevant to purifying these materials.